SIFTER: A Systems Biology Platform for Protein Function Prediction

Proteins are key biomolecules involved in virtually all processes within cells,
e.g., metabolism, cell signaling, immune response, etc., and knowledge of
protein function is vital to obtain a basic understanding of cellular activity.
Due to recent advances in nucleotide sequencing technology, the number of
available genomic sequences is doubling in size roughly every 12 months, an
incredibly fast pace vastly exceeding Moore's law. Experimental technologies
required to decipher protein function have not progressed nearly as fast. In
fact, although there are roughly 10 million protein sequences in the
comprehensive Uniprot database, only 0.2% have experimentally validated
function annotations. This sequence-function gap is rapidly expanding, and the
development of computational methods is of crucial importance to effectively
utilize this deluge of sequence data.

In this work, we develop SIFTER, a large-scale, systems biology platform to
accurately predict protein function from high-throughput data. Building upon a
promising phylogenomic-based prototype, we incorporate interaction networks
into our model to improve performance. Interaction data intrinsically couples
the thousands to millions of proteins within such networks, and we use
variational inference and parallelized implementations to address this
challenging computational problem. We also explore techniques for function
prediction based on low-rank matrix factorization, and along the way, introduce
novel sampling-based approaches to speed up computation. Additionally, we
develop algorithms to quantify uncertainty in SIFTER's predictions to
help guide future experimental work. These novel algorithms are large-scale
extensions to classical bootstrap sampling and are generally applicable to any
problem involving massive data. Finally, we evaluate SIFTER in
collaboration with experimental biologists, allowing us to pinpoint relevant
use cases and resulting in an effective method with widespread impact within
the biomedical community.